1991 Gordon Conference on Nuclear Chemistry; New London, New Hampshire; June 24-28, 1991

This grant provides partial support for the 1991 Gordon Research Conference on Nuclear Chemistry, to be held in New London, New Hampshire, 24-28 June. In addition to the usual topics related to nuclear spectroscopy and reactions discussed in this series of conferences, there will be special sessions on superdeformation, nuclear astrophysics, and nuclear physics with radioactive beams.